Some theory problems on quantum computation and information

Some Theory Problems in Quantum Computation and Communication

PI: Yaoyun Shi, University of Michigan, Ann Arbor

It has been demonstrated that quantum information behaves
fundamentally different from classical information, and,
it appears that computers based on exact quantum mechanical
principles can be dramatically more powerful than those
currently deployed. The goal of this project is to advance
our understanding on several fundamental questions concerning
the power and limitations of quantum information processing.

There are three main directions:

(A) Develop fast, systematic
classical algorithms that simulate quantum computation
and the time evolution of quantum systems. Results along this
line not only will shed light on the limitations of quantum
computation, but will also be valuable for the analysis and
engineering of quantum information processing components.

(B) Investigate properties of a special class of quantum objects
called graph states. Those quantum states play an important role in
quantum error-correction as well as in quantum one-way computation,
a quantum computing model promising for its physical implementation.
This research aims to understand the quantum properties of
graph states in terms of the combinatorial properties of the
associated graphs, and in the context of one-way quantum computing.

(C) Investigate quantum entanglement using tensor norms.
Tensor norms are powerful mathematical concept that are recently
shown to be closely related to quantum entanglement. This research
aims to further explore the connection.